Analytical Approaches to Singular Perturbation Problems of Significance in Applications

NSF Award Abstract - DMS-0103632

Mathematical Sciences: Analytical Approaches to Singular
Perturbation Problems of Significance in Applications

0103632
O'Malley

The research will develop asymptotic methods to solve
nonlinear singularly perturbed boundary value problems
for both ordinary and partial differential equations. A
special emphasis will be the systematic development of
renormalization methods, which theoretical physicists
have proposed as a unified tool for asymptotic analysis.
Another will be continued investigation of metastable
dynamics for algebraic, as well as exponential,
asymptotics. The problems are related since they both
deal with long-time asymptotics and the classical method
of multiple scales.

Asymptotic methods, like computation, provide an
important way to find approximate solutions to nonlinear
problems arising in significant applications. This work
seeks to further develop such analytical techniques and
to apply them in engineering and the sciences.